Biodiversity and Ecosystem Informatics - BDEI - Towards an Operational Semantics of Biological Diversity: Integrating Structure and Function in a Web-accessible Knowledge Base

EIA-010931
Villa, Ferdinando
University of Maryland Center for Environmental Sciences

BDEI: Towards an Operational Semantics Diversity: Integrating Structure

Summary

Understanding the dynamics of biological diversity requires new approaches and
integration between different disciplines. The development of a unitary body of
knowledge about biodiversity is made difficult by the fragmentation and lack of
interoperability between the diverse - and often informal and simplistic - semantics
adopted for data and models. Different representational paradigms require conceptual, as
well as technical, integration to enable reorganizing the body of knowledge and enable
new ideas, theories, and higher-level paradigms to surface and be tested.
Building on software and conceptual frameworks being developed at IEE/UMD, we
propose to develop and deploy a web-accessible database where temporally- and
spatially- explicit biodiversity data will coexist with dynamic modular models,
potentially integrating multiple modeling paradigms and automatically enforcing their
compatibility. The XML-based infrastructure used by the underlying software engine will
enable us to store data and models (modules) adopting an extensible array of
representations, and to link them together transparently and automatically. The
integration will happen through explicit cross-cutting abstractions called domains, which
represent various aspects of the world (such as time or space) as seen by each module,
and are processed by the simulation engine to resolve conflicts related to different scales
or representational paradigms.